U.S.-Russian Center-Based Cooperative Research in Environmental Microbiology

WPC = 2 B V R Z e #| J 7 i C 3 , X i \ P 6 X P " m ^3ETgg EEEgt3E39gggggggggg99ttt ~r EP ~ r r~ ~E9E`gE g g Egg99g9 ggggEP9gg gg c)co E3EE "EEE C EEEEEE dEg9 Y Y Y Y Y Y~Y~Y~Y~YC8C8C8C8 d d d d d d d d d d Y g g d d dsd g~ ~ ~ ~ g g g g g g g gE8E9E9E9 oP g~9~9~9~8~9 g v g g g g E E ErPkNrPrP~9~9~9 g g g g g g g~ Y~ g~9 g ErP~9 g g g g gNH 3 gE gggg g9@ gFdddg F %C g EE ggzz d d d w rr E d FHP LaserJet 4 (935-Mail) INTHP4-1.PRS X i \ P 6 \ E X P 2 o Z e #| J HP LaserJet 4 (935-Mail) INTHP4-1.PRS X w P 7 \ E X P 2 < Z 7 CG Times CG Times Italic CG Times Bold CG Times Bold Italic 8 w C ; , `X w P E37 X P > 6 u C ; , l'X u & _ x 7 X X 7 z C ; , l X z _ p i7 X | 4 x C ; , ' X x * 0 x 7 X V " G ( $ , T h G P E37 h P > X F ( $ , , h F & _ x 7 h X g E E ErPkNrPrP~9~9~9 g g g g g g g~ Y~ g~9 g ErP~9 g g g g gNH 3 gE ggg " m + O 6 ^$(8<<k (((<k((((<<<<<<<<<<((xkx5kWLRYLGWY(/TLmYWEWP@LYWqWWN(((<<(5<5<5(<<!!<! <<<<,/!<<W<<55<5x < <<{ <<< ( <<<<<< <<<! W5W5W5W5W5kPR5L5L5L5L5(!(!(!(!Y<W<W<W<W<Y<Y<Y<Y<W<W5Y<W<W<W<Y<E<W5W5W5R5R5R5R5Y<L5L5L5L5W<W<W<W<W<W<Y<Y<(!(!(!(!XC/ T<L!L!L!L!L!Y<YGY<Y<W<W<kWP,P,P,@/@/@/@/L!L!L!Y<Y<Y<Y<Y<Y<qWW<N5N5N5 Y<L!Y<P,@/L!W<W<Y<W<Y< ( << ( ((Wxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxx xxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxNWWW< <<(511<<i<<<kk<*<<<<k* (( >><k xx<<II x<x<W< GddCCk (> < q *"xxxxWWxxx<Wxx>WWkkxxx <Õkkxxx" k<((xxxxxWIxkWWWWWWWWWW (x<W<C<kxWxP<(<W5<EW NxxWWWWWWWWWWxxxxx8xWWWWxxxxxxxxxxxxx xxxxxxWWxxxxxxdPI xWx xx 3G WWWW xx x xx x WWW<WWxWWxxx WW W5 WWWW5 WWWWW WWW WWW WWW WWWWWWWWWWWWWW W WWWWWW WWWWWWWW( WWW( WWW( WWW( WWWW W W WWWW WWW WILC ICP5L/N5Y<W5(!T5PCmCY5P<W5WIE<I< <L5W5PIWC IIII/<!!555I5I I IIX((<<<<< << IIIIIIIIIIIIIIIIIII///////<<<<<<<<<<<<<<<<<<<<!!!!!!!!!!!!5555555555555555555IIIIIIIIIIIIIIIIIIII( E WLY(WWI(W< <5( x l 7 l TTlCH q qllllllF`RRqqAAleee Ob ggM`VVTR^gjjj }q nnnxl } z VqVjjjj5VsjC}}jjj>>$jjjjjq5jjjjjjjjjjjjjjjjjjjjjjjjjjjjjjjzzzzvvvvvvvvvv ^^jjjjjjssjj }}jjggggjj``}` 7+J jj " m + O 6 ^$(:<<k (((<k((((<<<<<<<<<<((xkx<kIIPWIEWW(5PCdPWIWI<CWIdICC(((<<(<<5<5!<<!!5!W<<<<//!<5P55/5<5x < <<n <<< ( <<<<<< <<<! I<I<I<I<I<kPP5I5I5I5I5(!(!(!(!P<W<W<W<W<W<W<W<W<C5I<W<W<W<C5W<I<I<I<I<P5P5P5P5W<I5I5I5I5W<W<W<W<W<W<W<W<(!(!(!(!b<5 P5C!C!C!C!C!P<PIP<P<W<W<qPI/I/I/</</</</C!C!C!W<W<W<W<W<W<dPC5C/C/C/ W<C!P<I/</C!C5C5W<W<W< ( << ( ((WxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxxNWWW< <<(<88<<h<<<kk<*<<<<k* (( <<<k!!xx<<II x<x<W< @ <<k (< < k *"xxxxWWxxx<Wxx<WWkkxxx <Õkkxxx" k<((xxxxxWIxkWWWWWWWWWW (x<I<C<kxWxP<(<W5<EW NxxWWWWWWWWWWxxxxx8xWWWWxxxxxxxxxxxxx xxxxxxWWxxxxxxdPI xWx xx 3G WWWW xx x xx x WWW<WWxWWxxx WW W5 WWWW5 WWWWW WWW WWW WWW WWWWWWWWWWWWWW W WWWWWW WWWWWWWW( WWW( WWW( WWW( WWWW W W WWWW WWW IIIC ICP5I/C5W<W5(!P 5PCdCP5P<W5WII<I< <C5C5PIIC IIII/<!!555I5I I IIX((<<<<< << IIIIIIIIIIIIIIIIIII///////<<<<<<<<<<<<<<<<<<<<!!!!!!!!!!!!5555555555555555555IIIIIIIIIIIIIIIIIIII( E IIW(WCI(C< <5( x l 7 l TTlCH q qllllllF`RRqqAAleee Ob ggM`VVTR^gjjj }q nnnxl } z VqVjjjj5VsjC}}jjj>>$jjjjjq5jjjjjjjjjjjjjjjjjjjjjjjjjjjjjjjzzzzvvvvvvvvvv ^^jjjjjjssjj }}jjggggjj``}` 7+J jj 2 = ' 2 " 4 | J ~ ^ ; C d d C C C d C C C C d d d d d d d d d d C C Y ~ ~ w C N ~ s k ~ C C C d d C Y d Y d Y C d d 8 8 d 8 d d d d J N 8 d d d d Y Y d Y d 3 d d " d d d C d d d d d d d d d 8 Y Y Y Y Y Y ~ Y ~ Y ~ Y ~ Y C 8 C 8 C 8 C 8 d d d d d d d d d d Y d d d d d s d Y Y Y Y Y Y Y d ~ Y ~ Y ~ Y ~ Y d d d d d d d d C 8 C 8 C 8 C 8 o N d ~ 8 ~ 8 ~ 8 ~ 8 ~ 8 d v d d d d J J J k N k N k N k N ~ 8 ~ 8 ~ 8 d d d d d d d Y Y Y d ~ 8 d J k N ~ 8 d d d d d C d d C C C W x x x x x x x x x x x x x x x x x x x x x x x x x x x x x x x x x x x x x x x x N d d d C Y Q Q d d d d d d F d d d d F C C h h d 4 4 d d z z d d d w o o C h d F " d h d Õ 9 d C C z C d d o d d C d Y d s z U w d Y Y C C C C z ~ o z o Y ~ N Y d Y C 8 Y o o Y d Y z s d z d d ~ Y Y z o z z z z N d 8 8 Y Y Y z Y z z z z C C d d d d d d d z z z z z z z z z z z z z z z z z z z N N N N N N N d d d d d d d d d d d d d d d d d d d d 8 8 8 8 8 8 8 8 8 8 8 8 Y Y Y Y Y Y Y Y Y Y Y Y Y Y Y Y Y Y Y z z z z z z z z z z z z z z z z z z z z C s ~ C z C d d Y C x \ p x t l l X p h h < X \ H | " 4 | J ~ ^ ; C ` d d C C C d C C C C d d d d d d d d d d C C d z z z s C Y o z z d o z z o o C C C d d C d d Y d Y 8 d d 8 8 Y 8 d d d d N N 8 d Y Y Y N Y d Y d 3 d d " d d d C d d d d d d d d d 8 z d z d z d z d z d Y z Y z Y z Y z Y C 8 C 8 C 8 C 8 d d d d d d d d d o Y z d d d d o Y d z d z d z d z d Y Y Y Y d z Y z Y z Y z Y d d d d d d d d C 8 C 8 C 8 C 8 d Y Y o 8 o 8 o 8 o 8 o 8 d z d d d d z N z N z N d N d N d N d N o 8 o 8 o 8 d d d d d d o Y o N o N o N d o 8 d z N d N o 8 o Y o Y